Mathematical Models of Structured Populations in Biology

The Principal Investigator studies mathematical models of
epidemics structured by individual behavior. The models are
applicable to three levels of population epidemiology: (1) in-host
pathogenesis of microorganisms, (2) noscocomial (hospital acquired)
epidemics, and (3) large-scale epidemics in society. The research
is applicable to (1) models of prion replication with individual
prion polymers structured by fibril length, (2) models of
antibiotic resistance in hospital settings with individual patients
structured by age since becoming infected with drug resistant
bacterial strains, and (3) models of viral respiratory epidemics
with individual infectives structured by age since becoming
infected. The models consist of nonlinear differential equations
and the methods of research utilize differential equations theory,
operator theory, functional analysis, numerical analysis, and
computer simulations. The parametric input of the models is based
on experimental and epidemiological data in consultation with
scientific collaborators.

The goals of the research are (1) to evaluate hypothesized
mechanisms of prion proliferation in the development of diseases
such as bovine spongiform encephalopathy (mad cow disease) and to
predict the efficacy of therapeutic intervention, (2) to understand
the evolution of multi-drug antibiotic resistant bacterial strains
in hospitals and to evaluate hospital policies that prevent or
reduce their endemicity, and (3) to analyze the effects of
quarantine and isolation measures in epidemics such as the 2003
SARS epidemic and the influenza pandemic of 1918. The significance
of the research is its contribution to public health policy in
control of epidemic diseases.